Community College Faculty Development on Ethics, Values, Science and Technology

9223333 Jones Little attention has been paid to ways to engage students at community colleges in the consideration of ethical and value dimensions of scientific and engineering practice and the impacts of science and technology. This faculty development project has at its core an intensive study group program for eight faculty members from Raritan Valley Community College (RVCC) and Somerset County Technical Institute (SCTI). The program will enable the faculty to integrate into the standard curriculum attention to the ethical and value aspects of science and engineering. To achieve its goals and to disseminate results and provide a model for others to consider, the program involves a collaboration among faculty at RVCC and SCTI, the New Jersey Institute of Technology, and high schools, industries, and other consortia involved in advancing science and engineering education in the region and the nation. The project uses an across the curriculum methodology that involves the faculty in the process of discovering ways of modifying their standard classroom presentations in order better to prepare students for their careers. The participants will meet with an expert on ethics and science and technology who will provide advice and instruction on approaches to ethical decisionmaking concerning science and technology and on developing classroom environments that foster the analytical, conceptual and social skills necessary to encourage ethical reflection in undergraduate students in scientific, engineering, and technical courses. Individual core faculty, assisted by other experts if appropriate, will conduct weekly seminars on particular issues of science, engineering and ethics during the Fall semester. A day-long open workshop on ethics and effective working relationships between industry and academia will end the Fall semester program. The Spring program will recruit eight additional group members for weekly seminars and monthly curriculum development activiti es. At the end of that semester, faculty, students, and members of the commuhnity will be invited to participate in a week-long program on "Technology across the Curriculum," and a day-long program for high school faculty will be designed to make them aware of opportunities to consider ethics issues in science curricula. Program activities and results will be disseminated in a wide variety of ways. Newsletters will keep faculty at the involved institutions informed. Statewide, results will be made available through the New Jersey Institute for Collegiate Teaching and Learning, which is a state funded project to disseminate ideas through publications and faculty and staff development workshops. In the state and more broadly, information will be made available through the Statewide Systematic Initiative for Achieving Excellence in Mathematics, Science, and Technology Education, through the NJ Mathematics Coalition and the Academic Officers Association of the Community Colleges, and through the MidAtlantic Consortium for Math and Science Education. Project results will also be disseminated nationally at appropriate conferences and through appropriate journals. ***